LCE: Life Cycle and Durability Predictions of Elastomeric Components

ABSTRACT

Proposal Number: CTS 9908925

Principal Investigator: A. Wineman

The research will explore the physical factors that affect the durability of elastomeric components, such as large deformation, conversion of mechanical energy to heat, heat transfer, and changes in material properties due to changes in microstructure. The first component of the experimental program will be to characterize the thermal and mechanical properties using coupon specimens subjected to cyclic uniaxial and multiaxial deformations under different ambient conditions. The evolution of microstructural changes as functions of the mechanical and thermal histories will be of particular interest. Subsequent experiments will focus on non-homogeneous deformation and temperature fields and their correlation to the degradation of mechanical properties. The studies will provide the necessary data for the development and validation of mathematical models for rubber thermo-viscoelasticity, heat generation and microstructural changes and lead to the development of realistic and accurate life and durability predictive models.